An Investigation into Thermochemical Piles beneath Africa and the Pacific

Seismological studies have revealed the presence of large, low velocity anomalies
in the lower mantle beneath Africa and the Pacific, and there is growing evidence that
these anomalies may be caused by chemical heterogeneity, possibly due to a more-dense
mantle component. A comprehensive geodynamical study into the development of
thermochemical piles in the lower mantle will be undertaken by performing fully 3D
spherical thermochemical convection calculations at Earth-like convective vigor which
includes Earth's Cretaceous to present day subduction history. The proposed work
involves a joint geodynamics-tomography approach to impose constraints upon
heterogeneous mantle models by direct comparisons between geodynamically-predicted
and seismically-observed tomography. The objectives of this work are to:
(1) develop a method of 'tomographic filtering' and spatial correlation which will
transform geodynamic output to more closely resemble what it is expected to
appear as from observational tomography.
(2) Investigate the necessity of thermochemical models by determining whether
isochemical models can predict observations from seismology. Previous work
has hinted that this is not likely, however, only limited parameter sets have
been observed.
(3) To perform a comprehensive parameter search to understand how rheological,
thermodynamic, and material properties affect the geographic position, areal
extent, and height of dense thermochemical piles.
(4) To ultimately place constraints upon the density and volume of dense piles
that have been proposed to reside beneath Africa and the Pacific.
Broader impacts associated with this work include providing resulting data to the
GEON project which has been active in developing new, interactive methods to visualize
3D geodynamical data sets with the ultimate goal of fostering collaborative efforts in
science and education. In addition, new code development will be shared with the
Computational Infrastructure for Geodynamics (CIG). The proposed research will also
form the basis of a Ph.D. student's dissertation, and will involve collaboration between
seismology and geodynamics.
--

Robin Reichlin
Geophysics Program Director
National Science Foundation
4201 Wilson Blvd., Room 785
Arlington, VA 22230
PHONE (703)-292-8556 FAX (703)-292-9025

Upcoming Deadlines:

GEOPHYSICS: December 1, 2004 (NEW EAR Program Announcement NSF 04-613)
http://www.nsf.gov/pubsys/ods/getpub.cfm?nsf04613

CSEDI: August 25, 2005 (Program Announcement NSF 04-593) http://www.nsf.gov/pubs/2004/nsf04593/nsf04593.htm

Guidelines:
NSF's latest Grant Proposal Guide is NSF 04-23 http://www.nsf.gov/pubsys/ods/getpub.cfm?gpg